Travel: NSF Student Travel Grant for 52nd International Conference on Very Large Databases 2026 (VLDB 2026)

This project provides funding to enable students in US universities to participate in the Very Large Databases (VLDB) 2026 conference in Boston. Support provides funding primarily to defray the costs of registration, travel, and lodging for the students. VLDB is the premier conference in the area of databases and is a forum for sharing progress and critical to enabling new innovations in the area. The proposed effort will also bring together students and senior researchers from academia and industry with a global perspective for a wide range of activities, including keynote talks, an industry track, tutorials workshops, and a PhD forum.

The goals of VLDB 2026 are to provide a forum for sharing results of investigations of major challenges in next-generation database research, promote collaboration and cooperation between US and international researchers on related topics, and stimulate interactive discussions on database research. A key objective of the conference is to communicate research results and stimulate intensive and interactive discussions between the participants in both formal presentations and informal settings. VLDB 2026 will feature research, industry, tutorial, poster, and panel tracks, along with workshops and a PhD forum. A series of workshops cover a wide range of topics that reflect the various areas in which database researchers are making an impact. Participation will enable the students to gain familiarity with both the academic and industrial circles in various countries while keeping the financial burden for the participants reasonable.